Texas State Middle School Mathematics Project: Tx(SM)2

Submitted under the guidelines for Teacher Enhancement, Teacher Retention and Renewal, this is a 36-month project to offer a graduate leadership program in middle school mathematics to 100 teacher leaders. The teacher leaders will complete a 36-hour master's degree in mathematics content and pedagogy, and in leadership/mentoring. The project will include both residential and on-line components. It is a collaborative effort among Southwest Texas State University, Stephen F. Austin State University, Sam Houston State University, the Texas Statewide Systemic Initiative, the Texas Rural Systemic Initiative, and K-12 partner schools.

The project builds upon successful collaborations in pre-service with the intent to provide leaders who can mentor the new inductees. It will combine face-to-face meetings in the summer and weekend immersion during the academic year, along with internet coursework and interactive distance learning.